Experiment-Based 3-D Computational Studies of Blood Flow in Stenotic Carotid Arteries with Dynamic Wall Properties

The principal investigator and his colleagues use an
experiment-based computational approach to model blood flow in
large stenotic arteries and investigate critical flow and artery
wall behaviors that may lead to artery compression, plaque cap
rupture, stroke and heart attack. Dynamic properties of the
stenotic arteries with plaque stiffness and geometry variations
are determined experimentally using hydrogel tubes whose
mechanical properties are close to those of bovine carotid
arteries. This leads to a series of 3-D nonlinear computational
models with fluid-wall interactions based on the experimental
measurements. Arbitrary Lagrangian-Eulerian formulation is used
to deal with free moving boundaries. Implicit methods including
the SIMPLER algorithm and fully coupled methods based on
mesh-free generalized finite differences with staggered grids,
upwind techniques, and a consistent physical interpolation
technique are used to solve the fluid model. A sequence of
experiment-based thin- and thick-wall models are introduced to
model the dynamic nonlinear properties of the stenotic tube wall
with large strain, deformation, compression and collapse. An
incremental boundary iteration method and an under-relaxation
technique are used to handle the fluid-wall interactions.
Validated by experimental data, results obtained are
physiologically relevant and may provide information helpful for
early detection, diagnosis and prevention of related
cardiovascular diseases. The models and numerical methods
developed are applicable to a wide range of problems with
fluid-structure interactions and can be extended to include mass
transfer, structures of arteries and plaques, endothelial
responses, and arterial remodeling.
Stenosis, a constriction in blood vessels, is one of the
leading causes of death in the western world. The investigators
and their colleagues couple experiments with computations to
model blood flow in large stenotic arteries and investigate
critical flow and artery wall behaviors that may lead to artery
compression, plaque cap rupture, stroke and heart attack. The
problem is difficult because of the high complexity of artery
structure and its nonlinear mechanical properties, strong blood
and artery interactions, and critical flow conditions caused by
severe stenosis. Dynamic properties of the stenotic arteries are
determined experimentally using bovine carotid arteries and
hydrogel tubes, whose properties are close to those of bovine
carotid arteries. A series of 3-D nonlinear computational models
with fluid-wall interactions, based on the experimental
measurements, are solved by a novel numerical method to quantify
conditions under which artery compression and plaque cap rupture
may occur. Validated by experimental data, these results can be
helpful for early detection, diagnosis and prevention of related
cardiovascular diseases. The models and numerical methods
developed are applicable to a wide range of problems with
fluid-structure interactions and complex geometries. The models
can be extended to include mass transfer, structures of arteries
and plaques, grafts and stents, endothelial responses and
arterial remodeling. As applications of biotechnology, the
results obtained can be used to improve the design of medical
devices such as grafts and stents.